Theoretical Chemistry, Dynamical Systems, and the Geometry of Global Phase Space Dynamics

9704759 Wiggins This research project is concerned with developing analytical and computational tools for studying the global dynamics of semiclassical models of molecules. The emphasis will be on molecular models with three or more degrees-of-freedom and the analytical approach is that of the geometric theory of nonlinear dynamical systems. In particular, we will investigate how geometrical structures in phase space are manifested in experimental spectra, the local to normal mode transition in molecules with three or more degrees-of-freedom, energy transport and the role of invariant manifolds in determining this, and the dynamics of rotational-vibrational interaction in molecules with three or more degrees-of-freedom. In addition, we will investigate mechanism for global instabilities in Hamiltonian systems with three or more degrees of freedom; in particular, the Arnold mechanism. The research is concerned with the development of techniques to study classical and semiclassical dynamics of molecules with three or more degrees-of-freedom, as well as a fundamental study of mechanisms for instability in Hamiltonian systems with three or more degrees-of-freedom. Over the past 10 years experimental techniques have been developed in chemistry to the point where real time dynamical data related to molecular interactions and dynamics can be obtained, which has resulted in the area of research known as "femtochemistry". In some ways the experimental situation in chemistry today bears a strong resemblance to the experimental situation in fluid mechanics in the late 1970`s. At that time new laser based experimental techniques were developed that resulted in global, real time dynamical data from fluid flows. Such data played a key role in the dynamical systems analyses of fluid flows. In fact, one could make the case that these experimental advances were the reason that fluid mechanics became (probably) the main application area for dynamical sy stems theory throughout the 1980`s. Today we are in an analogous situation for theoretical chemistry vis- -vis the relation of experimental advances in fluid mechanics and dynamical systems theory in the late 1970`s. Consequently, a focused, interdisciplinary research effort in dynamical systems and theoretical chemistry could play an important role in the interpretation of this new experimental data, as well as the further development of the field of theoretical chemistry. This award will be supported by the Division of Mathematical Sciences, the Division of Chemistry, and the Office of Multidisciplinary Activities of the Directorate for Mathematical and Physical Sciences.